Ultrasonically Induced Fluid-Particle Interactions as Nonometer Length Scales

Earlier work on the acoustic microcavitation in the water at low megahertz frequencies and low duty cycles strongly suggests that the fluid-borne submicronic particles can be acoustically coaxed to make their presence known. The exact mechanism is not yet fully understood. The measurements will reveal fluid/acoustic interactions at nanometer length scales. Experimental facility will be set up to investigate the phenomenon and look for control strategies that will make "acoustic coaxing" a viable technique. This will offer a new way of detecting, studying and understanding submicronic particulate presence even in ultra- clean liquids. Further, unlike electron microscopy the technique will need no special sample preparation and unlike laser method the technique will not be blind in opaque environments. Applications range from the detection of corrosion debris in the clean water for nuclear power plants to the particulate control in the nanometer regime for silicon chip industry.